Long-Term Support for the National Election Studies: 1989- 1993

This award continues the Foundation's long-term support for the National Election Studies (NES). NES is an organization dedicated to sustaining and enhancing the diversified data base that supports basic research on voting, public opinion, and political participation in the United States. The importance of NES derives in part from the significance of these topics; voting, public opinion and participation are fundamental to the promise and performance of democratic forms of government. The NES represent the largest and most widely used longitudinal data collections on electoral behavior in the United States. Over the last two decades, NES has provided the conceptual and empirical foundation for research that has deepened our understanding of the role that Americans play in their own governance. At the same time, because processes surrounding voting, public opinion and participation can be treated as special cases of more generic aspects of social behavior - - rational choice, coalition formation, perception, attitude formation and change, and much more - - NES data have been put to a wide variety of purposes outside political science. In addition to pre/post election surveys of a national probability sample of the American electorate as the core data collections in 1990 and 1992, this award allows for planning, pilot studies, and implementation of research on these two elections. The award also provides support for the Board of Overseers that advises the Principal Investigator on the direction of NES, represents the community of researchers who use NES data, and guarantees the channeling of fresh insights and ideas into the election studies. The National Election Studies are an important national resource. They provide the data base for a large proportion of the research currently being conducted on American government and politics and will allow future scholars a solid empirical base on which to chart political trends. Important advances in the theoretical understanding of democratic processes should result from analyses of these data.